Connections to the Internet

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Through this new connection, Northeastern intends to facilitate a significant increase in science and engineering research with specialized computing and communication requirements. Representative projects include applications in high-energy physics, biophysics, computer science, materials science, and engineering. Related work will involve international collaborations, access to very large datasets, interactive real-time experiments, and large-scale testing and comparison of algorithms. Northeastern is collaborating with Boston University in establishing its connection. At a later time, should Boston University upgrade to OC-3 connectivity to the vBNS, Northeastern expects to do likewise.